Dynamics and Mechanism in Organic Chemistry

This grant funded by the Organic Dynamics Program in Chemistry provides support for the research of Prof. William Doering at Harvard University. The broad objective of the research is the formulation of mechanistic generalizations by deduction from experiment in the area of thermally induced reactions. His research will complement that of many theoretical and applied quantum chemists as well as kineticists. Specifically, his work on energy flow within molecules will address the question whether intramolecular energy randomization is competitive with the rate of a chemical reaction and whether the concept of mode-specific reaction is capable of being reduced to practice. Two projects will test for the previously unrecognized structural factors in the thermochemistry of polyenes and cyclobutanes. Such studies may have some implications to the anticarcinogenicity of beta-carotene. Finally, a new hypothesis on the role of solvation on rates of thermal cis-trans isomerism of polyenes will be tested and, if validated, will mark a significant advance in understanding medium effects.